CISE/CCF: 2013 Summer School on Formal Techniques

Formal modeling and verification technology has made
significant advances in the last two decades. Techniques like model
checking and theorem proving are now used in both the hardware and
software industries. Formal techniques are also increasingly being
used in scientific modeling, as for example in systems biology and in
the engineering of complex cyber-physical systems. The biggest
challenge facing this technology is the lack of trained users and
developers of this technology.
To address this gap, we started the Summer School in Formal Techniques.
Two such schools have been organized, during the summers of 2011 and 2012,
at Menlo College in Atherton, California. These schools attracted around 80
participants with a diverse range of interests and backgrounds. The
lectures were supported by hands-on laboratories. Both schools have
been received enthusiastically by the participants. The 2013
Summer School on Formal Techniques continues the work of developing a
well-knit community of researchers who are interested in learning
cutting-edge techniques in formal modeling and verification.
Attendees at the school have the opportunity to present their own
research ideas and to interact closely with both the lecturers and
other students.